Collaborative Research: Antarctic Meteorological Research and Data Center

The Antarctic Meteorological Research and Data Center (AMRDC) project will create an Antarctic meteorological observational data repository and archive system based on an open source platform to manage data from submission to end-user retrieval. The new archival system will host both currently available datasets and campaign meteorological datasets deposited by other Antarctic investigators. The project will also engage undergraduate and graduate students in order to provide them with meaningful experiences that can translate to several science, technology, engineering, and mathematics (STEM) career paths.

This project targets four main tasks as a starting point toward meeting existing recommendations and creating a more sustainable Antarctic meteorological enterprise: 1. Designation of the Antarctic Meteorological Research and Data Center (AMRDC), 2. Distribution of Automatic Weather Station (AWS) observations on GTS in WMO BUFR format, 3. Establish a steering committee for the AMRDC, and 4. Diagnostic case studies of Antarctic meteorological events.